Meromorphic Solutions of Differential Equations and Algebro-Geometric Differential Operators

A recent discovery by F. Gesztesy and the PI reveals a relationship
between the KdV equation and the condition that the associated ordinary
linear differential equations have only meromorphic solutions. The same
relationship exists also for the AKNS system. Both, the KdV equation and
the AKNS system, are completely integrable Hamiltonian systems. It is
anticipated that the relationship pertains to more general integrable
systems and the major object of the project is to establish this. An
important role in this respect is played by so called algebro-geometric
solutions of the integrable system under consideration which assume the
role of potentials of the associated linear equations. The PI plans an
expansion of abelian function theory to include functions on singular
algebraic curves since this is required for a complete characterization
of algebro-geometric potentials. Algebro-geometric potentials associated
with the KdV equation give also the first tractable examples of
quasi-periodic, non-selfadjoint differential operators. It is planned to
investigate such operators and their spectrum and to develop an inverse
spectral theory for them.

Integrable systems and, in particular, the KdV equation play an
important role in mathematical physics were they are used as models for
various phenomena, e.g., in mechanics, hydrodynamics, and nonlinear
optics. Even for systems which are not integrable it is often fruitful
to consider them as perturbations of integrable systems. Likewise,
inverse spectral theory is a central part of applied mathematics since
it is fundamental in areas ranging from quantum theory to computer
tomography. Therefore this line of research has enjoyed an enormous
amount of attention in the past and will so in the future. This project
is part of that endeavor.